Conference at MSRI in Low Dimensional-Topology

9727594
Casson
This award will provide partial reimbursement for travel and
subsistence of speakers and participants in a conference on
low-dimensional topology that took place at the Mathematical Sciences
Research Center, Berkeley, California, May 22-26, 1998. The purpose of
the conference was to bring together researchers working in all strands of
low-dimensional topology and to enable them to gain an overall perspective
on developments in the field. Recent years have seen exciting new
developments in the study of 3- and 4-dimensional manifolds and knot
theory. Bringing researchers in these fields together encouraged a
cross-fertilization of ideas and techniques, exposed graduate students
to these ideas, and encouraged new collaborations. The conference took
place one year after the end of a closely related year-long program at
M.S.R.I. Thus it was natural to review how progress had been
consolidated in this area over the ensuing year, and an added benefit of
the conference was to expose this progress to the wider mathematical
community. Approximately 150 mathematicians attended the conference,
more than 50 of them graduate students. Some talks were tailored
specifically for these students.
Topology addresses those geometric properties that depend only on
continuity, i.e., on the notion of one point being close to another, but
disregards the stock in trade of high school geometry, measurement of
quantities such as distance, angle, area, volume, and so forth. Topology
of the plane is often referred to in popular scientific literature as
rubber sheet geometry, and this captures the essential spirit of the
discipline without giving so much as a hint of the techniques topologists
might use in their science. They confront some very basic but elusive
properties, those that remain after rigidity has been exorcised, and the
past century has seen the gradual assembly of a considerable arsenal of
weapons for dealing with these properties. Low-dimensional topology,
mainly the topology of 3- and 4-dimensional geometric objects, presents
special problems of its own, for while we have the intuition that we
should be able to apprehend these object more readily, living as we do in
3-dimensional space and 4-dimensional space-time, in fact much of the
algebraic machinery that has been developed for topology fails in these
lower dimensions. Recent years have seen some remarkable advances on this
front too, and this was the central theme of the conference at M.S.R.I. in
May. It is also noteworthy that low-dimensional topology has become
sufficiently highly developed to be useful, for example, in applications
of knot theory to polymer chemistry and to the study of DNA. As this field
continues to progress, the immediacy of the objects with which it deals is
likely to lead its further technical advances to find equally natural
applications in the real world.
***